Sitting Bull College Planning for Improvement in Science & Mathematics

This planning project is designed to improve mathematics science and learning
opportunities for Sitting Bull College students, "to each according to his/her needs".
The planning process will identify the needs of four distinct groups of students.
Group one: students whose career fields do not require extensive mathematics and
science preparation. Group two: students entering science and engineering fields.
Group three: students entering fields such as human services and business where
mathematic curriculum can be taught to make use of quantitative methods in
decision making. Group four: students entering the elementary and middle school
teaching, and must be aware of North and South Dakota performance standards.